Mathematical Sciences: Boltzmann-Fokker-Planck Equations: Nonlinear Existence Studies and Supportive Linear Theory

This project has two parts. First research will be completed on the existence of solutions of the nonlinear Boltzmann-Fokker-Planck equation and its linearization about equilibrium in the physically relevant Li-space setting. Second, the inverse scattering problem for the 3-d non-spherically symmetric Schrodinger equation will be considered in the form of a Riemann-Hilbert problem. In particular, the principal investigator will prove the existence of a Wiener-Hopf factorization of its "symbol," determine the nature of the partial indices specifying the Fredholm properties of the problem, and express the solutions in terms of the factors. In addition, the connection of this method to the Newton-Marchenko method and other alternative approaches will also be studied.//